Conference on Physics from Large ()-ray Detector Arrays

This grant will provide partial support for 20 graduate students and postdocs to attend the Conference on Physics from Large Gamma Ray Detector Arrays, August 2-6, 1994, in Berkeley, CA. This conference will concentrate on the latest advances in Nuclear Spectroscopy to come from gamma ray experiments utilizing large detector arrays including the new GAMMA SPHERE detector just coming on line at Berkeley and a similar effort in Europe, EUROGAM. ***